Conference on Representations of Algebras and Related Topics, July 15 - August 10, 2002, Toronto, Canada

International Conference on Representations of Algebras and Related
Topics, July 15 -- August 10, 2002, Toronto, Canada

The PI and the organizing committee plan to provide support for the
participation of as many junior US mathematicians as possible in the
biennial international meeting in Toronto this summer. Next to the
presentation of cutting-edge research, several series of overview
lectures by leading experts and an extensive workshop program aim
at introducing start-up researchers to the field. Central subjects
are the geometry of module varieties, invariants and deformations,
homological developments -- specifically, derived categories,
representation type, including the in-depth exploration of pivotal
classes of tame or wild algebras. Among the applications -- their
thorough documentation is one of the highest priorities -- are the
theories of complex semisimple Lie algebras and algebraic groups,
singularities and categories of perverse sheaves, new insights into
the structure of the Bernstein-Gelfand-Gelfand category, as well
as the homological treatment of finite group schemes.

The representation theory of algebras has its origin in the study
of 'groups', originally certain collections of motions of space
which allow for concatenation and inversion. The next idea was to
represent more abstract algebraic objects, arising in theoretical
physics and chemistry for instance, in terms of linear motions of
suitable spaces, to render their structure more transparent. In the
meantime, the scope of objects studied along this line has been
dramatically enlarged, and a big arsenal of methods to analyze such
representations has been assembled. Tools which have proved
particularly effective include geometrical and combinatorial
setups, and variations of a general theme which can be outlined as
follows: One starts by establishing optimal situations, which can
be completely analyzed, and then measures the deviation of a more
challenging situation from the optimal ones to make headway in
steps dealing with progressive increases in complexity.
Applications extend to almost all parts of mathematics and provide
the theoretical frames for models in theoretical physics.
In fact, some of the recent initiatives were prompted by physicists
and feed back into quantum physics.